Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1998

Abstract DBI-9804266 Lee Ann Meisel This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1998. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative research into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled Arabidopsis mutants disrupted in light and sucrose response pathways. Light is a fundamental environmental cue utilized by plants to signal a variety of morphological and metabolic processes. Sucrose, a product of light regulated photosynthesis, has feed-back activity by suppressing light- activated genes. The asparagine synthase gene (ASI) is repressed by both light and sucrose. This unique repressive regulation by both light and sucrose on the AS1 promoter is being used in a positive selection. strategy to isolate mutations in the light and sucrose signal transduction pathways.